Ehrhart Rings, Invariants and Koszulity

This project uses algebra to enhance famous counting formulas by (insightfully) throwing in an extra variable "q". These q-counts have connections to quantum theory and to the theory of error-correcting codes, which help reduce errors in noisy transmissions from objects in space. A beautiful feature of these "q-counts" is that they respect the symmetries present in the objects being counted. The project will involve undergraduate and graduate students in the research.

The PI proposes a suite of problems, conjectures and questions concerning the "point orbit method" for producing q-analogues in various counting problems. These include q-analogues of Ehrhart's theory of lattice point counting in dilated polytopes, and the Crapo-Rota "finite field" method for analyzing hyperplane arrangements. The point orbit method originated in the invariant theory of polynomial rings, and a second thread of the project concerns cases where deformations of these invariant rings turn out to be Koszul algebras.